Stabilization via a Robust Observer: Tolerable Uncertainty Configurations

This action is concerned with the transfer of a project on the robuststabilization problem supported under NSF grant ECS-8311290 from the University of Rochester to the University of Wisconsin-Madison. In particular, robustness bounds have been developed for systems with uncertainties in the parameters when these systems are controlled using an observer (a construct which allows the estimation of the system states when they are not all directly measurable). Norm bounds on the parameter variations have been developed which, whensatisfied lead to stability of the overall system. In addition, conditions have been developed which allow the extension of the classical separation theorem to systems with uncertainties in the parameters and controls which are certain nonlinear functions of the state estimates.